Knowledge Creation and Diffusion in Organizations Using the Six Sigma Approach

PIs propose to assess Six Sigma practices as indicators of knowledge creation, diffusion and use in complex organizations. In Phase 1, they will develop exploratory cases in two firms, capturing a current and retrospective project in each. Six different Six Sigma methodologies will be the focus of data collected from structured and unstructured interviews, site tours, archival sources and questionnaires. In phase 2, theories developed will be empirically examined in a larger sample of 200 projects from five other companies.

This proposal balances explicit learning and knowledge with tacit learning and knowledge, and, via the Six Sigma process, directs attention to specific knowledge management practices. Panelists suggested further attention to the context of Six Sigma, going beyond this method itself to the larger questions of knowledge management, particularly in light of researchers' intent to study Motorola, which has reportedly refocused its attention. In addition, panelists also suggested a closer look at social network data, allowing for a concurrent test of the alternative social factors explanations and substantially bolstering the strength of the proposed research.